Design and Testing of a Fiber Optic Radiometer to Study the Horizontal Convergence of Solar Fluxes in Clouds

Observations of solar radiation entering clouds at the top and exiting at the bottom indicate that more energy is absorbed than predicted from the optical properties of the drops and gases of which the clouds are composed. Several hypotheses have been proposed to explain this so-called "anomalous absorption" but none is generally accepted. Part of the difficulty in resolving the apparent discrepancy is that the measurements available to now only tell part of the story. At best, what is measured is the total downwards flux of energy (the irradiance) at cloud top and the same quantity simultaneously at cloud base. The difference in irradiance is accounted for not only by the absorption and scattering of radiation along the line in the direction of the sun but also by the extinction of scattered radiation flowing in all other directions. Information on the directional dependence of the radiant energy, or the radiance, is needed to get at the heart of the problem of anomalous cloud absorption. This grant supports the development and testing of a radiometer of novel design to measure the radiance in approximately 50 different directions in the upwards or downwards hemisphere. Recent developments in fiber optics and CCD technology will be employed. Evaluation of the instrument will include comparisons with standard measurements of solar irradiance. The ultimate application of the instrument will be the airborne measurement of radiances in clouds.